Workshop on Mathematical Aspects of Orbifold String Theory

DMS-0101066
Alejandro Adem

This award provides partial support for participants to attend
a Workshop on Mathematical Aspects of Orbifold String Theory
to be held at the University of Wisconsin-Madison,
May 4 through May 7, 2001. The workshop will bring together
groups of mathematicians and physicists to identify and outline
emerging problems associated with diverse mathematical developments
arising in orbifold string theory. In particular this event will foster interdisciplinary research involving mathematical physics, algebraic geometry, differential geometry, algebraic topology and representation theory. Recent Ph.D.'s and graduate students are especially encouraged to attend and apply for support. Further information, including invited speakers, schedule of talks, housing information and a registration form is available at
http://www.math.wisc.edu/~conklin/ost